Physics REU Site Project

This action will provide further support for the REU Site in the Physics Department of Oregon State University. Eight students will be selected through a national recruitment process to be involved in a nine-week summer research program in physics. Fields of physics to be emphasized include AMO, computational, solid state, and nuclear. Students will be housed together in campus dormitories. Each REU student will work in a close mentoring relationship with one of the faculty in their research labs. In addition to the research experience, the participants will complete a special short summer course in interfacing computers to laboratory devices, a skill that is essential in many research programs, and they will also receive instruction in machine-shop techniques. A final "mini-conference" will give the students an opportunity to describe their research to their colleagues and to the faculty and students of the Physics Department. The program will be evaluated through written surveys as well as through oral interviews.